United States-European, Focused Workshops to Stimulate Collaborative, Manufacturing Systems Research; Eindhoven, Netherlands, 5/22-27/94; West Lafayette, IN; 10/22-27/94

9403185 Moodie This research is concerned with facilitating research collaboration between American and European investigators involved with funded investigations of manufacturing systems. Prior attempts at collaboration have had marginal success. Within the program researched here, a small group of currently funded researchers from the United States and E.C., with narrowly defined, on going research programs, will participate in two focused workshops: one in Europe, the other in United States. Immediate sharing of usable research results is anticipated and future, joint research projects can be established. This program will provide a format for stimulating research collaboration in other areas of manufacturing research.